REU Site: Computing Research for Undergraduates: Visualization, Virtual Environments, Gaming, and Networking

Summary

The project objectives are to broaden participation in computing doctoral
programs by providing a year-round research experience that will immerse
undergraduates into the activities and culture of a research lab. The activities
include a summer research experience and an academic year experience
introducing students to computing research methodologies and a broad array of
computing research disciplines.

Students will receive support from peer and faculty mentors. Students will
take a GRE prep course and will be shown how to apply to and succeed in
graduate school. The targeted student participants are women and
underrepresented minority students who are rising juniors,
predominantly from non-doctoral institutions. The intended impact is that a high
number of REU students will apply to computing doctoral programs.

NTELLECTURAL MERIT
Project merit resides in the contributions to computing research that will be
produced by the undergraduate students participating in the REU Site.
Additionally, the program evaluation will inform efforts to recruit undergraduate
students to doctoral programs by demonstrating the success and challenges of this
REU Site structure for motivating students to apply to doctoral programs in computing.

BROADER IMPACT
The PIs anticipate increased numbers of students from underrepresented populations in
computing who successfully participate in research and who apply to and are accepted into graduate
programs in computing.